ERCZ: Biotechnical Stabilization of Coastal Landforms & Sanday Leeves

The objective of this project is to increase the resistance to surficial erosion and to shallow sliding or sloughing in sandy coastal slopes as a result of both increased effective stress from developed compression on the ground surface and by an increase in apparent cohesion from fibrous root development around imbedded live stems and cuttings. The effectiveness of combining soil bioengineering measures such as live staking and fascines with anchored netting systems will be investigated. Analytical studies will be carried out to determine the optimal anchorage system for netting and geofabrics that takes into account the geometric arrangement, spacing, length, and inclination of the anchors in addition to the visco-elastic properties and stretched shape of the netting.